Numerical Experiments on the Stability of Nonlinear Partial Differential Equations

This research is concerned with investigations into the stability properties of waves of certain partial differential equations, including the generalized kdV- Burgers equation, the nonlinear Cahn-Hilliard equation, and the Becker-Doring cluster equations. Numerical experiments will be performed to identify and to clarify issues for theoretical study.